LISP Machines

Lisp workstations will be provided for researchers at Penn State University for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the area(s) of Artificial intelligence, programming languages, and analysis of algorithms.